POWRE: Nonlocal Electromagnetic Response: Theory and Applications

This award of the Professional Opportunities for Women in Research and Education (POWRE) program supports the research and educational activities of Professor Katherine Hunt of Michigan State University. The research pursues new applications of nonlocal electromagnetic response theory, in order to predict and interrelate experimental measurements within two research areas: derivation of interconnections among vibrational force constants, infrared intensities, and electric field gradients at nuclei, in an experimentally useful form, and evaluation of a nonlocal, intramolecular dielectric function to characterize the screening of perturbing potentials. The opportunity afforded through the POWRE program will enhance Professor Hunt's research and leadership potential and her educational mentoring of undergraduate, graduate, and postdoctoral women scientists.